2006 IEEE Information Theory Workshop

IEEE Information Theory Workshops (ITWs) are held on topics of special research interest
at irregular intervals. A 2006 ITW will be held at the Chengdu International Exhibition
and Convention Center, Chengdu, China, October 22 - 26, 2006,
http://sist.swjtu.edu.cn/imc/itw06/.

This proposal requests support for the travel expenses of junior participants from the U.
S., such as graduate students, research associates, and new faculty hires. These
participants will be individuals whose papers have been selected for presentation at the
workshop, but who lack funds and would not be able to attend without travel support. ITW
has a strong tradition of junior participation that has helped it to maintain its
reputation as a leading forum for new ideas. It is proposed that the two U. S.-based
co-chairs of the symposium, Shu Lin and Daniel Costello, make the awards. The total
amount requested is $15,000; this is based on 15 awards (averaging $1,000 apiece).